Young Scholars Program: Jackling Institute/Jackling-2

9553525 Kohser This proposal seeks support for a two-phase, four week, multidisciplinary, summer residential Young Scholars institute in engineering and earth sciences for twenty students entering the twelfth grade. Approximately 120 high school seniors will attend the one week program (40 students/week for three weeks). The primary goal of this component of the program will be to present career opportunities in disciplines relating to minerals, materials, energy, and the environment. Twenty students from this group will be invited to return for a three week intensive workshop consisting of intensive and individualized projects. Follow-up activities will consist of supervised completion of individualized projects including a competition award for the best project essays.